Symposium on Utilization of Ocean Waves Scripps Institution of Oceanography, La Jolla, CA. June 17-18, 1986

This symposium will focus on systems for the recovery of ocean wave energy. Attention will focus on such topics as de-salinization, cultivation, and energy at remote sites.